Entropy and Boundary Methods in von Neumann Algebras

The theory of von Neumann algebras, originating in the 1930's as a mathematical foundation for quantum physics, has since evolved into a beautifully rich subfield of modern functional analysis. Studying the precise structure of von Neumann algebras is rewarding for many reasons, as they appear naturally in diverse areas of modern mathematics such as dynamical systems, ergodic theory, analytic and geometric group theory, continuous model theory, topology, and knot theory. They also continue to be intimately involved in a variety of fields across science and engineering, including quantum physics, quantum computation, cryptography, and algorithmic complexity. The PI will focus on developing a new horizon for research on structural properties of von Neumann algebras, by combining entropy (quantitative) and boundary (qualitative) methods, with applications to various fundamental open questions. This project will also contribute to US workforce development through mentoring of graduate students and early career researchers.

In this project, the PI will develop two new research directions in the classification theory of finite von Neumann algebras: applications of Voiculescu's free entropy theory to the structure of free products and of ultrapowers of von Neumann algebras; the small at infinity compactification and structure of von Neumann algebras arising from relatively properly proximal groups. This will involve a delicate study of structure, rigidity and indecomposability properties via innovative interplays between three distinct successful approaches: Voiculescu's free entropy theory, Popa's deformation rigidity theory, Ozawa's theory of small at infinity boundaries and amenable actions.